Set Theoretical Naturalism

9320220 Maddy The theory of sets functions as a framework for most contemporary work in mathematics: all mathematical entities are ultimately modelled as sets and all mathematical theorems are ultimately provable from the standard axioms of set theory (i.e. from the system ZFC). Unfortunately, the axioms of ZFC are probably not strong enough to settle some questions that turn up in the various branches of mathematics: e.g., in algebra, in analysis, and in set theory itself. One reaction to this problem has been to embrace all relatively consistent extensions of ZFC as equally admissible, and thus to dismiss the independent questions as meaningless (they are true in some models, false in others, and that is the end of the story). For various good reasons, this solution is not acceptable to many leading set theorists. The alternative is to search for new axioms to add to those of ZFC in hopes of answering the independent questions. The pressing philosophical question is how to make sense of this evaluation of new axiom candidates. If there is an objectively existing world of sets, then such candidates should be accepted insofar as they reflect the truth about that world. Philosophers have puzzled over the nature of that world and our cognitive access to it. These philosophical matters aside, this realistic position has shortcomings from a purely mathematical point of view: it short-circuits various legitimate methodological questions inside set theory itself. In this project, Dr. Maddy aims to produce a better understanding of the proper means of evaluating axiom candidates with less attention to extra-mathematical philosophical quandaries, and more attention to the texture of the mathematics itself. Her approach, which she calls `set theoretic naturalism', provides a framework for the defense of various general methodological principles for set theory, principles defended by their ability to generate good mathematics rather than by some purported ability to generate truths about some extra-mathematically characterized reality of sets. With these principles in place, it is possible to defend various additional axioms and hypotheses and to answer at least some of the independent questions. ***